Mathematical Sciences: Proposal for the Second Conference onComputation and Control; July 31 - August 9, 1990, Bozeman, Montana

This award will support a conference entitled The Second Conference on Computation and Control. The conference will be held from 1 August to 8 August, 1990 on the campus of Montana State University in Bozeman, Montana. The theme of the conference is the interaction between numerical analysts and control theorists. Not only is there a need to merge computational methods into the control theory design, but also there are areas in control theory that have complete analogies in numerical analysis. Arrangements have been made with Birkhaeuser to publish the proceedings from this conference.